The Role of DNA Methylation in PIli Gene Regulation

This proposal focuses on the role(s) of DNA methylation in the regulation of pyelonephritis-associated pili (pap) gene expression. Pap pili expression is subject to a phase variation regulatory mechanism which involves DNA methylation and specific methylation blocking at two GATC sites within the pap regulatory region. This mechanism appears to be distinct from other phase variation systems previously studied. The overall objective of this proposal is to determine the mechanism by which the methylation of two "GATC" DNA sequences within pap is blocked by the papI and methylation blocking factor (mbf) gene products and how these two genes products regulate pap pilin transcription. To accomplish this overall objective I propose to first modify DNA sequences both nearby and within the GATC deoxyadenosine methylase recognition sequences which are located adjacent to the pilin promoter. The effects of these mutations on pilin transcription will be determined using both pap-lac gene fusion constructs and quantitative analysis of pap mRNA. A second objective will be a combined genetic and biochemical approach to overexpress and purify the PapI and MBF protein (s) which are required for pap transcription as well as GATC methylation blocking. Both in vitro and in vivo protein-DNA interaction analyses will be carried out to determine how MBF and PapI interact with pap DNA sequences to block methylation and facilitate pap pilin transcription. The role(s) of Dam methylase in this process will be examined by determining the effect(s) of in vitro methylation on protein-DNA interactions. The experiments proposed are important and significant because they explore a new area in bacterial gene regulation; the epigenetic modulation of gene expression by DNA methylation.